Collaboration: Toward Unified Seismic Source Models: Joint Body Wave and Surface Wave Inversion Methods

This research is a collaborative effort to develop simultaneous body-wave and surface-wave inversion methods for the earthquake source. The goal is to attain unified descriptions of earthquake rupture processes using the entire spectrum of seismic and geodetic measurements. Currently, even the most sophisticated analyses of different wave types (e.g., body waves and surface waves) often yield inconsistent fault parameters. This inconsistency should be resolved by joint inversion. The work will merge three different body-wave inversion methods, each appropriate for a certain class of earthquake rupture, with high-resolution, fundamental-mode surface-wave spectral- inversion techniques. This research is a component of the National Earthquake Hazard Reduction Program.